Mathematical Science Computing Research Environments

9506557 Dey The Department of Statistics at the University of Connecticut proposes to purchase one networked Server workstation which will be dedicated to support research in mathematical statistics, complex statistical modeling and statistical software development. In particular it will support the work of D.K. Dey in the area of Bayesian modeling, A.E. Gelfand in the area of Bayesian computation, J. Glaz in the area of high dimensional scan statistics, N. Ravishanker in the area of long memory time series analysis, and R. Vitale in the area of convex geometry in stochastic problems.